Support for the Symposium on Architectures for Networking and Communications Systems

This symposium aims to bring together researchers from computer system architecture and networking systems to promote cross-disciplinary research activities and outreach. The funds requested will be used to provide travel support for students, post-doctoral researchers, and junior faculty to attend the symposium and have an outlet for exposure and involvement in these activities.